SGER: System for Multidimensional Proteome Analysis

9906662

Abstract

Following the complete sequencing of the genome, the next challenge will be to describe the repertoire of proteins synthesized by specific cell types under specific circumstances, i.e. proteome analysis. Such study will require development of analytical methodology capable of addressing very complex mixtures of proteins. The proposed work is directed toward development of such methodology using an integrated microfluidics (microchip) system employing three orthogonal separation/analysis modes (isoelectric focusing, partition chromatography and mass spectrometry) followed by computer analysis of the resulting data. The proposed system will be capable of identification of proteins in complex mixtures, including post-translationally modified proteins and definition of quantitative differences between protein mixtures. The prototype of the proposed system will be implemented using recently developed soft-lithography techniques.